Dynamic Consistency Using Nonexpected Utility

Expected utility (EU) models are the cornerstone of the economic approach to modeling decision making under uncertainty. These models perform poorly, however, in describing decision making under a number of real-world conditions. Non-expected utility models have been developed to address the shortcomings of the conventional approach. Modeling and empirical use of non-EU models are currently constrained because it is believed these models violate desirable behavioral properties. This research will analyze the validity of those beliefs. Non-EU models will be applied to dynamic choice situations. The investigators will explore families of non-EU models that maintain the property of dynamic consistency in these situations. The results are expected to broaden the application of non-EU models to a wide range of modeling environments.